OLEO: The On-Line Educational Observatory

Astronomy (11) Project CLEA (Contemporary Laboratory Experiences in Astronomy) is developing
an on-line environment that provides discovery-based laboratory exercises to
undergraduate astronomy students. The components of the system are: (1) A
browser-based On-Line Educational Observatory (OLEO) which realistically
simulates optical, radio, and space-based telescopes, along with photometric,
spectroscopic, and imaging instruments,. (2) An extensive heuristic database, covering
the entire sky, which incorporates selected data on positions, magnitudes, spectra, and
other properties of a wide range of real astronomical objects including asteroids, stars,
galaxies, pulsars, x-ray and IR sources. (3) Student workbooks and teacher's guides for a
variety of exercises using the Virtual Educational Observatory.
CLEA materials are made available on a dedicated OLEO Website, as well as
on a series of CD-ROMS for installation on mirror sites, local networks, and individual
machines. The use of the materials is supported by outreach workshops held at
national and regional teachers' meetings. A summer training workshop for college
teachers will be held on the Gettysburg College campus in the summer of 2003. The
curricular impact and pedagogical effectiveness of these materials is being evaluated at a
diverse group of institutions (Universities, 4-year colleges, 2-year colleges, and High
Schools), by observations by an external evaluator and through the analysis of on-line
questionnaires.